CAREER: The Development and Application of Hybrid Computations for Interfacial Problems in Materials Research

9624634 Thompson This is a CAREER grant which integrates research and education activities. The research component is aimed at understanding how microscopic structural and dynamic effects at solid/fluid interfaces impact macroscopic fluid flows. Of particular interest are flows involving the spreading of fluid on a solid substrate. Such flows are ubiquitous in nature and are encountered in many important manufacturing processes. Examples include coating, fabrication of metal/ceramic composites and containment of molten alloys. To model these systems a new computational method will be developed. The method will link a molecular dynamics simulation in the vicinity of the solid interface with a continuum model on larger length scales. By using a molecular dynamics simulation near the solid, the detailed flow can be modeled without imposing phenomenological boundary conditions. By using a continuum description such as the Navier-Stokes equations away from the solid, the flow at experimental length scales can be resolved. This discrete-continuum hybrid computation in and of itself represents an important advance in simulational techniques. Integrated with this research is a teaching program that includes the development of a multidisciplinary curriculum on computer simulation of systems at the molecular/particle level. Interesting results from research in molecular hydrodynamics and computational materials science will be integrated into the undergraduate curriculum in fluids and thermodynamics. %%% This is a CAREER grant which integrates research and education activities. The research component is aimed at understanding how microscopic structural and dynamic effects at solid/fluid interfaces impact macroscopic fluid flows. Of particular interest are flows involving the spreading of fluid on a solid substrate. Such flows are ubiquitous in nature and are encountered in many important manufacturing processes. Examples include coating, fabrication of metal/ceramic composites and containment of molten alloys. To model these systems a new computational method will be developed. Integrated with this research is a teaching program that includes the development of a multidisciplinary curriculum on computer simulation of systems at the molecular/particle level. Interesting results from research in molecular hydrodynamics and computational materials science will be integrated into the undergraduate curriculum in fluids and thermodynamics. ***